CAN Channels in Burst Generation and Modulation

Calcium-activated non-specific cation (CAN) channels play a crucial role in the generation and modulation of bursting activity in neurons. Bursting, the grouping of action potentials in high periodic frequency discharges, is an important neuronal property characteristic of such phenomena as pacemaking and neurosecretion. Because CAN channels have a central function in burst generation, their characteristics are significant determinants in neuron encoding. The goal of this research project is to investigate the selectivity and voltage dependence of CAN channels. Dr. Partridge will study these channels by using the patch clamp technique, an experimental technique which allows for the study of single channels in isolation. Studies on how CAN channel activity is modulated by phosphorylation, the modification of protein structure induced by the attachment of phosphate groups, will be performed. This investigation explores basic neuronal properties important to the signalling function in the nervous system.